RET Web Site

This award supports Columbia University to host and improve a web site, currently known as RETNetwork, whose role is to provide infrastructure for the NSF-funded Research Experiences for Teachers programs (RETs). The web site's recent statistics show dozens of daily visits. The web site will also update information on known RET sites and include new RET sites. The RETNetwork web site will continue to keep a large number of RET stakeholders connected and will provide them with a forum to share best practices. This award is funded by the Office of Multidisciplinary Activities in the Mathematical and Physical Sciences Directorate.